Continued Monitoring and Interpretation of Contemporary Deformation Associated with the Yellowstone Hot Spot: GPS Measurements of Postseismic and Interseismic Deformation

This research is part of a broader, multi-institutional study to monitor and analyze contemporary surface deformation due to an active continental hot spot. The project currently involves direct participation from MT, University of Utah, National Geodetic Survey (NGS), U.S. Geological Survey (USGS), and ETH-Zurich. An extensive crustal deformation experiment was completed in the vicinity of the volcanically and seismically active Yellowstone Hot Spot in 1987 involving 80 GPS sites, 15 EDM points, 620 km of releveling, and 160 precise gravity observations. The present work focuses on deformation in the Hebgen Lake region and includes monitoring rapid horizontal and vertical surface movements associated with the Hebgen Lake earthquake and strain accumulation (and release in the event of an earthquake) across a number of Cenozoic normal faults. 2 repeat surveys of the Hebgen Lake GPS network will be carried out during the next 3 years. Both of these surveys will likely be done in collaboration with NAGS and USGS.